Wavelet estimation of long-range dependent processes

Time series with long-range dependence have been recently the focus of
much attention. They appear in a number of applications, for example,
in the analysis of traffic in computer networks. In finite variance
time series, long-range dependence is characterized by a covariance
function which decreases slowly to 0 as the lag increases. The
decrease is so slow that the corresponding spectral density blows up
at very low frequencies, a phenomenon also known as ''long-range
dependence'', ``long memory'' or ``1/f noise''. There are many
empirical procedures which are graphical in nature but rigorous
estimation procedures are few. The better ones use a semi-parametric
approach because long-range dependence does not involve the short
range dependence structure. The most successful methods have been
Fourier-based. One approach involves a regression on the logarithm of
the periodogram. Another is the local Whittle approach. It is a
pseudo-likelihood approach which uses the periodogram at low
frequencies only. The investigator proposes to use a pseudo-likelihood
approach based not on the Fourier spectrum but on wavelets. The
advantage of wavelets on Fourier is that there is no need to
difference the time series if these are not stationary and, in
general, they are much more robust against departure from
stationarity. Since wavelets are associated with scaling it is,
moreover, natural to attempt to use wavelets in order to estimate the
intensity of long-range dependence. Wavelets have been successfully
used as an alternative to the regression on the logarithm of the
periodogram but wavelets have not been
used as an alternative to the Fourier-based local Whittle approach.
The investigator proposes to do so. This would provide a robust
semi-parametic pseudo-likelihood based method to estimate the
intensity of long-range dependence.

The subject of time series analysis has sparked considerable research
activity over the past several decades. Essentially concerned with
measurements over time of various kinds of phenomena --- from yearly
income, exchange rates, to the level of a river --- the goal is to
develop suitable models and obtain accurate predictions for such
measurements, the core ingredient being the notion of time dependence.
Benoit Mandelbrot in the sixties suggested using models involving
long-range dependence. Long-range dependence, to put it concisely,
affects phenomena in which correlations between the present and the
past decay slowly with time and thus they cannot be easily ignored.
Time series with long-range dependence and their variations have been
used in hydrology, geophysics and biophysics, and more recently, in
finance and in analyzing traffic in computer networks. It is thus
important to be able to estimate effectively the intensity of
long-range dependence. The purpose of this research is to develop a
new methodology to achieve this goal. It is wavelet-based and hence
insensitive to the effects of trends and other deviations from the
model.